U.S.-Hungary Joint Fund Project Development for Research on Receptor Mediated Ion Translocation

The primary objective of this U.S.-Hungary cooperative research project between Dr. Julianna Kardos of the Central Research Institute for Chemistry, Budapest and Dr. Derek Cash, University of Missouri, Columia is to use fast kinetic technique for the analysis of transmembrane ion fluxes mediated by the ion-channel forming neurotransmitter receptor such as gamma-aminobutyric acid (GABA). Determining the relationship between the binding reaction and the GABA receptor-controlled 36CL -ion fluxes requires the techniqus of rapid mixing because - due to rapid desensitization of receptor on exposure to GABA - the translocation process is complete within a few hundred milliseconds. For the existing fast reacting techniques, Dr. Kardos plans to explore the versatile quenched flow machine developed by Dr. Cash and is now constructing the machine in his laboratory. The project development visit by Prof. Cash would focus on extending their previous work on the GABA receptor to drugs which effect its function using a preparation enriched in GABA receptors. Funds for this project are awarded through the US-Hungary Joint Fund, Budapest in accordance with established guidelines.